Inter-University Software Engineering Education

Computer Science (31)

The methodology initiated in the proof of concept CCLI grant #0127439 distributes some software engineering student project implementation to other courses during the same term at the same university in an intra-curriculum manner. The sharing of the implementation burden allows these students to focus more fully on the rightful objectives of the software engineering course. Students in the other courses are excited when their own course projects become a useful part of a larger system. This project expands this methodology to include courses at other universities. North Carolina A&T (under a sub-award of this grant) and Appalachian State in this project develop a synchronous methodology of inter-university collaboration applicable when institutions are similar in terms of programming language, academic calendar, location, etc. DePaul University (under a sub-award of this grant) assists in developing an asynchronous methodology when the institutions are dissimilar.